Travel Support to the 23rd International Cosmic Ray Conference; Calgary, Canada; July 19-30, 1993

9307235 Harding This proposal requests funds for partial support of expenses for 24 scientists to attend the 23rd International Cosmic Ray Conference at Calgary, Canada 19-30 July 1993. Individuals will be selected on a competitive basis of research quality, financial need and geographical and institutional distribution. ***